Purchase of Preparative Ultracentrifuge Instrumentation

This proposal is for ultracentrifuge facilities to support molecular and cellular biology research programs in twelve laboratories in the School of Biological Sciences at the University of Kentucky. Specifically the instrumentation will support research on the molecular genetic analysis of pyrimidine biosynthesis in animal cells, the complex cellular interactions within vertebrate retina, regulation of the eukaryotic cell cycle at the biochemical and genetic levels, replicative and transcriptive pathways of vesicular stomatitis virus, cellular control of messenger RNA abundance, and on understanding the role in virus transformation of cell surface carbohydrates containing lipids and proteins. Together with existing instruments, the requeted equipment will provide essential support for projected faculty expansions into the area of molecular and cellular biology.